Mathematical Sciences: Three-Dimensional Topology

This project concerns theoretical and practical aspects of the Homeomorphism Problem for 3-manifolds (to algorithmically recognize the topological type of a given 3-manifold). In its full generality, the solvability of this problem is still an open question, but for a large class of 3-manifolds, the corresponding problem has been solved. Typically, those algorithms which completely solve a Recognition Problem are slow (i.e., of exponential time-demand), while the fast (polynomial-time) algorithms give only partial results. Recently, the investigator found a complete algorithm for recognizing the "unknot" which is also fast; however, the proof that the worst-case time-demand is, indeed, polynomially bounded, is not yet complete. The investigator intends to complete the work on the fast recognition of the unknot, and to extend the result to some related recognition problems. He also intends to simplify the older theory by means of recently discovered results.